Color and Light: Education in Applied Physics at the Fashion Institute of Technology

This project will upgrade and expand instruction in color science in nine associate and baccalaureate degree programs at the Fashion Institute of Technology (F.I.T.). F.I.T. is a specialized community college of the State University of New York. The understanding of color in scientific terms is an essential part of the professional education of a growing number of full and part-time students at F.I.T. who prepare for careers in fashion and its related industries and professions. Beyond the need for professionally relevant education, the college is committed to the importance of providing hands-on experimentation in up-to-date laboratories to enable a wide variety of students to understand, first-hand, the rigors, creativity, and excitement of modern scientific inquiry. The acquisition of a computer- driven spectrophotometer with appropriate software and plotter, portable colorimeters, and dyeing equipment will upgrade laboratory instruction, reducing student frustration with failure of old equipment and increasing the range of experiments students will perform. This project will strengthen the F.I.T. model of integrating professional education with relevant instruction in basic sciences, mathematics, and liberal arts